Doctoral Dissertation Research in Sociology

Neither neo-classical economics--human capital theory--nor the neo-structuralist approach alone explain the patterning of labormarket outcomes. Both approaches overlook the organizational level process which not only embodies structural influences, whether due to sectoral segmentation, industrial effect, or class position, but also recognizes that these influences mediate labor market outcomes. This doctoral dissertation project will examine the nature of organizational effects on wage policy using Occupational Wage Survey data and Manufacturing Sector Wage Survey data pertaining to Korea. This project will contribute to sociological and social scientific understandings of the role of organizations in labor markets by analyzing and drawing on the elements of the neo-classical and neo-structuralist paradigms in order to develop a single coherent theory. This project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.